Controlled Polytypism in a Variable Bandgap Semiconductor

This project concerns the study of lead iodide, a compound semiconductor, which has potential applications as a photoconductor for scintillation spectrometers. This work could lead to a replacement material for mercury iodide.